Conference: WORKSHOP: Doctoral Consortium at Student Research Workshop at the the Annual Meeting of the Association for Computational Linguistics (ACL 2025)

This project provides funds to support student participation in the Student Research Workshop (SRW) at the 64th Annual Meeting of the Association for Computational Linguistics (ACL), to be held July 2-7, 2026, in San Diego, California. Natural language processing is a critical area of computer science that enables machines to understand and generate human language, powering everyday technologies such as virtual assistants, translation services, and accessibility tools. By supporting doctoral students in attending this premier international conference, this project helps develop the next generation of researchers who will advance these technologies. The workshop gives students the opportunity to present their research, receive expert feedback, and build professional networks that will shape their careers and lead to new collaborations. These interactions broaden awareness of cutting-edge research across institutions and foster diversity within the field.

The SRW provides a structured forum for doctoral students to present both research papers and thesis proposals to an audience of peers and established researchers. Student presenters receive detailed feedback on their methodology, experimental design, and research direction at a critical stage of their graduate careers. The workshop complements the main conference program, which features advances in areas such as machine learning for language understanding, dialogue systems, information extraction, summarization, and multilingual processing. Through a combination of oral presentations, poster sessions, and mentoring activities, the SRW enables students to refine their dissertation research, identify gaps in their approaches, and situate their contributions within the broader landscape of computational linguistics.